TOGA-COARE Enhanced Monitoring: A Meridional Array for Currents Along 165 E

This project is part of a collaborative effort to obtain long- term (2 years) observations of ocean circulation and atmospheric forcing, in anticipation of an intensive experiment planned for the Western Pacific Warm Pool in late 1992/early 1993, called TOGA-COARE (Coupled Ocean Atmosphere Response Experiment). Long- term measurements will begin in late 1991, and continue until well after the intensive experiment is completed, providing the overall environmental context for the intensive experiment. In this component, together with colleagues at NOAA's Pacific Marine Environmental Laboratory, and the University of Hawaii, the P.I. will deploy and maintain an array of sub-surface moorings equipped with upward-looking Acoustic Doppler Current Profilers, which will provide data on the circulation in the upper 250 meters in a region near that of the intensive experiment.